Dissertation Research: Top-down Versus Bottom-up Impacts on Creosote Bush Insects at the Jornada LTER Site, New Mexico

! F ( Times New Roman Symbol & Arial " h C E C E ; Elizabeth M. Behrens Elizabeth M. Behrens